SBIR Phase I: Low-Cost Forming of Superalloys

*** 96-60844 Yang This Small Business Innovation Research (SBIR) Phase I project will investigate low-cost processing of superalloys. Materials such as superalloys have commercially desirable properties for applications in extreme environments. Unfortunately, these materials are often unaffordable primarily because of the inherent difficulty in forming and shaping these materials into useful components. Phase I will explore a concept that superalloys can be readily processed into useful shapes. Phase II would optimize the technology and produce prototypes of commercial interest. Commercial applications are expected in widespread use of superalloys in advanced structural tools, transportation engine components, magnetohydrodynamic components, stress-prone high temperature parts (for armaments, nozzles, and combustion chambers), and corrosion-prone health care component, such as implants. ***